ARI: Development of a Novel Systems Software for Multimedia and High-Performance Computing

9601675 Reddy, A.L. Narasimha Mercer, Ray Texas Engineering Experiment Station Academic Research Infrastructure: Development of a Novel Systems Software for Multimedia and High Performance Computing This Academic Research Infrastructure award supports the development of a distributed network of workstation for multi-media research. The research projects supported by the award include video server applications, distributed circuit simulation, test generation, and device level multimedia scheduling.